CRB: Subdivision versus Ranching: Effects of Livestock Grazing and Exurban Development on the Biodiversity of a Southwestern Grassland/Savanna

PROJECT SUMMARY
Across the interior American West,cattle ranches are being converted to subdivisions,in order to
accommodate exurban population expansion.What are the biodiversity consequences of this
profound land use change?That is the core question addressed by this proposed research.
Conversion of rangelands to subdivisions may negatively impact native biodiversity through
direct habitat loss.It has been argued that finding ways to keep ranchers from selling their lands
to developers is vital to conservation.On the other hand,most western ranches include some
public lands that cannot be sold,and even on private lands the developments usually are low
density.Therefore,western exurban development often results in relatively little direct habitat
loss.If a landscape is converted by scattered subdivisions,but simultaneously released from the
controlling influence of livestock grazing,will this result in net gains or losses of regional
biodiversity?So far,a volatile mixture of prediction and passion has fueled this debate,but
rarely has it been informed by data.
The purpose of this proposed study is to quantify components of native biodiversity in a
grassland/savanna in the Sonoita Valley of southeastern Arizona,where some cattle ranches are
being converted into subdivisions.This study will compare flowering plant,grasshopper,
butterfly,bird,and rodent populations in landscapes that are being grazed,or subdivided,or
both,or neither.It also will quantify the demographics of three bird species known to be
particularly responsive to the effects of livestock grazing and/or landscape conversion through
subdivision.The data will be used to test a series of hypotheses and predictions about the
independent and interactive effects of exurban development and livestock grazing on 1)species
richness and evenness of native biotic communities,2)invasions of exotic species into those
communities,3)population and community stability,and 4)avian demographics.
The centerpiece of this work will be the Appleton-Whittell Research Sanctuary,a 3200 ha
preserve that has been ungrazed and otherwise undisturbed since 1968,and that has been the
focus of extensive fieldwork since the early 1970 's.Unlike many land use studies in the West,
this one will have a control,to the degree that 33 years protection have permitted patterns of
native biodiversity to express themselves in the absence of either agriculture or exurban
development.
Results of this study will address basic and unanswered questions about the relative impacts of
local forces (livestock grazing)versus landscape conversion (subdivision)on biodiversity in arid,
non-forested western ecosystems,where 1)natural landscape heterogeneity is high,2)
development is distant from the controlling influences of large urban centers,and 3)subdivision
usually consists of scattered landscape intrusions rather than fragmentation of the grassland into
isolated patches.The study will make societal contributions that are both timely and urgent,
given present rates of development in the rural West,and the many uncertainties about its
ecological consequences.